Godunov-Type Central Schemes for Hyperbolic Problems: Further Development, Adaptation, and Applications

Central schemes may serve as universal finite-difference methods for
numerically solving hyperbolic conservation and balance laws,
Hamilton-Jacobi equations, and related problems. Such schemes are not
tied to the specific eigen-structure of the problem, and hence can be
implemented in a straightforward manner for a wide variety of nonlinear
equations governing the spontaneous evolution of large gradient
phenomena. This project aims to further improve the family of Godunov-type central
schemes, recently developed by Kurganov et al. The main ideas behind the
construction of the new, less dissipative central schemes are to use
more precise estimate of the smooth and nonsmooth parts of the solution
by considering non-rectangular control volumes; to use a more accurate
projection of the evolved data onto the original, non-staggered grid;
and to avoid the loss of information when very accurate fully-discrete
schemes are reduced to a much simpler semi-discrete form.
The second main goal of the project is the application of central schemes
to various multi-phase and multi-fluid flow models, the Saint-Venant
systems of shallow water equations (which describe flows in rivers and
coastal areas), multi-layer shallow water systems, models of transport of
pollutant in shallow water, the Euler equations of gas dynamics subject
to a static gravitational field, chemotaxis models, reactive flows (in
particular, the models describing stiff detonation waves), extended
thermodynamics, shallow water equations on a rotating sphere, acoustic
wave propagation, heterogeneous elasticity, granular material flows.
Naturally, these applications involve multiple space dimensions, complex
geometries and moving boundaries/interfaces, This would require further
development of the theory and implementation of central schemes. In
particular, semi-discrete central schemes on unstructured and triangular
meshes will be derived, and different adaptive techniques will be
incorporated into the central framework.

Recent development of modern technology requires reliable, efficient,
high-resolution methods for solving time-dependent partial differential
equations (PDEs), including multidimensional systems of hyperbolic
conservation and balance laws, Hamilton-Jacobi equations, and related
problems. In the past decade, a family of simple, universal,
Riemann-solver-free finite volume central schemes has proven to be
an appealing alternative to the more complicated and problem oriented
upwind schemes. The advantages of central schemes are particularly
prominent when they are used to solve complicated multidimensional
systems of PDEs arising in such important fields including fluid
mechanics, gas dynamics, geophysics, meteorology, magnetohydrodynamics,
astrophysics, multi-component flows, granular flows, reactive flows,
semiconductors, non-Newtonian flows, geometric optics, traffic flow,
image processing, financial, biological modeling, differential games,
and optimal control. This project is focused on the further development and improvement of
central schemes, and on their practical applications. The new central
schemes will be incorporated into a general-purpose adaptive mesh
refinement (AMR) and adaptive moving mesh (AMM) codes, which will be
freely accessible for the scientific and industrial communities. These
codes will serve as a reliable and robust "black-box-solver" for a
rather comprehensive class of time-dependent PDEs.